Acquisition of a High-Performance Cluster-Grid for Research and Education in Computational Sciences

Proposal #: CNS 08-21839
PI(s): Han, Jianchao
Beheshti, Mohsen; Nahapetian, Ani
Institution: California State University ? Dominguez Hills
Carson, CA 90747-0001
Title: MRI/Acq.: Acq. of a High Performance Cluster Grid for Research and Education on Computational Science
Project Proposed:
This project, acquiring cluster-grid instrumentation to fulfill the need for high-performance, contributes to computer science, biology, chemistry, bioinformatics, homeland security, sociology, psychology, and environmental sciences research and education. The high-performance cluster grid is expected to enable a quantum-leap in the computing capabilities accessible to the investigators. Diverse project directions include:
- Extending statistical techniques to situations with interval uncertainties
- Discovering gene interactions and gene-disease associations in online medical literature (using clustering, classification, and association mining technology),
- Automating computer network intrusion detection and prevention (integrating firewall and applying data mining technologies in computer network traffic data collected by SNORT),
- Developing an efficient and interactive online examination and assessment system(using knowledge-based expert system technology), and
- Designing and implementing healthcare and patient information management system.

Broader Impacts:
This project forms a foundation for new research capabilities at this minority-serving institution, impacting researchers and educators throughout the campus and beyond. It promotes the formation of research teams that may overcome traditional cultural and communication barriers enabling interdisciplinary approaches to technological and scientific challenges. The instrumentation provides students with the skills to cope with a rapidly changing workplace. Students will learn to communicate and interact with researchers of different disciplines, a valuable skill at this time.